A Real-Time Signal Processing Laboratory for Undergraduate Instruction

Two new senior electives in signal processing with emphasis on digital filter design and biomedical signal processing and systems are now being offered. This new undergraduate program emphasis in signal processing requires a laboratory that would provide experience in working on practical applications of signal processing. A real-time signal processing laboratory that would support the experiments and projects illustrating the concepts and techniques covered in the two new senior electives and in the required junior-level course in filter design is being developed. Emphasis will center on student educational projects involving the processing of a variety of signals including speech, music, seismic, biomedical, and video. The laboratory experience will be in the acquisition as well as in the processing of these signals. The laboratory would also serve as a test bed for VLSI signal processing architectures. The laboratory is based on a central server computer networked via Ethernet to workstations and personal computers. Personal computers will be used for the acquisition and processing of temporal signals and for low level processing and display of images that have been acquired by the server.